RCMS: Navajo Community Collge Science Honors Program

9550752 Bauer The Shiprock Campus of Navajo Community College is operated by the Navajo Nation and serves over 500 students per year in the largest population center of the Navajo Nation. The College is requesting support from the National Science Foundation to continue and expand the operation of a Science Honors Program for Navajo students entering science fields. Support is requested for 1) a full-time Project Coordinator, Student Support Coordinator, Academic Tutors, and Secretary; 2) funds for staff travel to implement and coordinate the program and for student travel for enrichment activities; and 3) scholarships for twenty students per year. This support will result in the recruitment of fifteen academically well-qualified students each year to the Shiprock Campus of Navajo Community College in science fields (ten funded through NSF support, two through Johnson & Johnson Environmental Scholarships, two from Lawrence Livermore National Laboratory's American Indian Program, and one additional Environmental Scholarship funded through a Department of Defense program). These students will be provided with financial assistance, travel funds to visit local industry, national labs, and to conferences to make research presentations. They will initially participate in a summer program to prepare them for college-level coursework through academic enrichment, cooperative learning and study skills. Subsequent summers will be spent in research placements in other university programs, or at national laboratories or private industry (all expenses provided through programs of these institutions). Math workshops for calculus classes are modeled after successful programs at UC Berkeley and CalPoly. Partnerships with four national laboratories two large corporations, and ten large regional universities provide scholarship internships, long-term equipment loans and networking assistance. This project has the potential of preparing a steadily increasing number of you ng Navajo students to succeed in science because of its location and the unique mission of Navajo Community college.